Mathematical Sciences: Rensselaer-MITRE Graduate Research Assistantship

9508661 Isaacson The University-Industry Cooperative Research Programs in the Mathematical Sciences are programs designed to establish a mechanism for exchange of mathematical scientists between academia and industry at different stages of their careers. These programs will strengthen the links between industry and academia and identify and encourage new avenues of research in the mathematical sciences. The University-Based Graduate Research Assistantships provide the opportunity for graduate students to spend part of their time in the classroom and part of their time in an industrial setting. These awards are a means of contributing to the future vitality of the scientific effort of the nation. Three problems in nonlinear dynamics, acoustic seismology and medical tomography will be studied by two graduate students under the supervision of faculty and industrial scientists. The first problem is to use chaos theory to detect the presence of a weak signal generated by a nonlinear mechanism in the presence of noise. The second problem is to use acoustic detectors on the ocean floor to improve the localization of earthquake sources. The third problem is to improve the localization and prediction of epileptic seizures in children.